Immuno-ultrastructural Analysis of the Splicing Complex

This laboratory uses an unusual in vivo ultrastructural approach, the "Miller chromatin spreading technique," to visualize transcriptionally active genes in the electron microscope and to analyze the co-transcriptional RNA processing events on nascent pre-mRNA transcripts, including ribonucleoprotein (RNP) formation, splice site selection, constitutive splicing, and alternative splicing. In order to extend observations from the level of ultrastructural phenomenology to biochemical identification of specific proteins, there is a need to be able to identify the proteins at specific sites on the transcripts and in specific structures. The technique of immuno-electron microscopy would allow this analysis, but has not yet been perfected for use on Miller chromatin spreads. The proposed project will take a systematic and logical approach to the development of such a technique. Some of the desired monoclonal antibodies are already in hand, which will be used in conjunction with colloidal gold markers for EM visualization.Immediate applications of such a technique include localization on nascent RNA of specific snRNPs, specific hnRNP proteins, general splicing factors, and proteins implicated in splicing regulation. The technique would be more generally useful, however, and could be used to localize proteins involved in chromatin structure, replication, transcription regulation, attenuation, and polyadenylation to specific sites or structures on the genetic material. The development of this technique would thus make possible a deeper understanding of how proteins interact with DNA and RNA to effect and regulate gene expression.